SST: Minimally-Attended Integrated Visual Surveillance Network

This Sensor proposal focuses on the development of sensory information
processing front-ends for a minimally-attended visual surveillance
network. We intend to use mixed-signal hardware computation methods in a
system-on-a-chip architecture. Image processing algorithms are
implemented at the focal-plane, using compact circuits that operate at
microwatt power levels to minimize battery weight and form factor.
Furthermore, the sensory front-end must demonstrate operational autonomy
(i.e. in decision making) and robustness (i.e. to changes in
environmental conditions).
Intellectual Merit: The proposed system will replace traditional
computer vision systems (cameras, digitizers and processors) with a
computational sensor. Using wide-dynamic range imaging, with local gain
control, circumvents the limitations of standard cameras. Spatiotemporal
feature extraction is used to highlight moving targets. The shape formed
by the features is identified using kernel learning in silicon; alarms
are generated based on the similarity of the targets to preprogrammed
shapes. Without these types of smart, ultra-low power, compact imaging
and computational microsystems, practical sensor networks for visual
surveillance may not be realizable.
Broader Impact: The sensors are primarily intended for surveillance of
large, remotely located areas, where limited manpower is available, e.g.
border patrolling. Their low power and small size obviates a variety of
mobile applications.
The multi-disciplinary nature of this work will result in the
development a pipeline of students, educators and researchers with the
broad skills required to succeed in modern high technology industry and
academics. Their education will be rounded with exposure to issues in
homeland security, privacy rights and international law.